III-COR-small: Harvesting Concept Hierarchies from Social Data

The Social Web is changing the way people create and use information.
Sites like Flickr, Del.icio.us, Digg, and others, enable users to
publish and organize content and participate in communities.
The information they create while interacting with content and
other users is called social metadata. Tags, one example of social
metadata, were introduced as a means for individuals to organize their
content by assigning freely-chosen keywords to it. Some Social
Web sites now also allow users to organize content hierarchically.
The photosharing site Flickr, for example, allows users to group
related photos in sets, and related sets in collections. Although
social metadata lacks formal structure, it captures the collective
knowledge of the community. Once extracted from the traces left by
many users, such collective knowledge will add a rich semantic layer
to the content of the Social Web. This project will develop a
probabilistic framework to combine diverse types of social metadata
to construct a common concept hierarchy. In addition, the methods
developed by the project will use social relations, in the form of
community participation, to discover community-specific vocabularies
and concepts, and identify facets of multi-dimensional concepts.

In the future, Social Web sites and data management tools will allow
users to express ever richer types of knowledge, including complex
predicates and semantic relations. The ability to aggregate
individually expressed knowledge into a unified whole will
transform the way people use information. Global concept hierarchies,
for instance, can help users visualize how their content relates
to that of others and allow for more efficient browsing, search
and discovery. By linking content to a common concept hierarchy,
the methods developed by the project could also be used to integrate
disparate data and align it across domains. The proposed work,
therefore, addresses one of the more important emerging questions
in AI, namely, how to harness the power of collective intelligence.

For further information about this project, please see the project
Web site at http://www.isi.edu/~lerman/projects/folksonomy.html.